Acquisition of a Confocal Scanning Imaging System

9220230 Kempf The purchase of a laser, scanning, confocal microscope is proposed with a 50% cost-share by Auburn University. The microscope will be utilized for research concerned with vitellogenesis and endocytosis, neurodevelopment, receptor-ligand binding, the role of compartmentalization of kinase and substrate during nervous system differentiation, physiological function of Na/K ATPase and carbonic anhydrace in water balance, neural network modeling, hypervelocity micrometeoroid impacts, tissue cyst formation by parasites, high temperature radiator technology, and the hormonal control of reproductive organ differentiation. This research will use a variety of techniques including 3-dimensional reconstruction, topographic imaging, analysis of metabolic function via the use of vital fluorescent dyes, and analysis of calcium distribution and flux. The microscope will serve the needs of many faculty at Auburn University whose research programs require the unique capabilities of this instrument. This includes a number of investigators whose research efforts are hampered by having to travel a considerable distance to University of Georgia, Athens to gain the use of such a microscope. The proposed instrumentation will be housed in the Auburn University Cell Science Center where it will be readily available for use by the PIs submitting this proposal, as well as by other faculty and students. Investigators that have need of a confocal microscope are from a number of different departments and represent diverse disciplines including Protozoology, Developmental Biology, Cell Biology, Physiology, Molecular Biology, Parasitology, and Electrical Engineering